Paleoclimate Experiments with a Seasonal Climate Model

This award will support research on numerical simulation of the seasonal cycle in an energy balance model under varying boundary conditions, in order to better define the role of seasonal cycle variations in paleoclimatic changes. Focus is on a set of numerical sensitivity experiments based upon altered land-ocean distributions which will enable examination of long term, glacial-interglacial transitions and associated seasonal cycle variability. This research will enhance our understanding of how and why climate changes have occurred over the relatively recent geologic past.